Software Development, Artificial Intelligence, and Graphics

Six workstations plus associated software are being used to develop courses in software development, artificial intelligence, and mathematical foundations of computer graphics. Students use CASE tools, tools for studying artificial intelligence and developing expert systems including LISP and PROLOG, and graphics software in the three upper division courses. A graphics printer/plotter also facilitates student learning.